HBCU-RISE Advanced Infrastructure Composites (AIC)

This HBCU-RISE proposal will develop improvements in the advanced infrastructure composites (AIC) research capacity at Southern University. Project goals include enhancing faculty and student competitiveness through increased collaborations, integration of research and education, and advancing the knowledge base in the area of infrastructure composites.